Dissertation Research: Genetics and Evolution of Subdioecy in Astilbe biternata

Antonovics 9520754 The majority of plant species have both male and female flowers. However, some species have male and female flowers on different plants. Plant ecologists and geneticists are keenly interested in the forces that determine the transitions between these two types of breeding systems. The proposed research will study how this transition is being manifested in an herbaceous plant, Astilbe biternata, which has an intermediate breeding system. Understanding this transition will increase knowledge of how genes can be transmitted in plants and will help to plan long-term conservation strategies for dioecious species.